Hardware Procurement and Software Development for a Multi-Institutional Mass Storage Systems

9512191 York The proposed project requests a terabyte storage system from 35 to 100 terabyte capacity over a high performance network. The proposed system is a high performance research infrastructure for high speed remote access to multi-terabyte databases. It will be shared by scientists in several diverse disciplines including research in climate studies, turbulence, cosmic ray air showers, and x-ray crystallography with the advanced photon source. All these tasks require terabyte databases. The proposed project is a collaboration between the University of Chicago, Argonne National Laboratory, IBM, and Ameritech. ***